Effects of Similarity on Judgment and Choice

This project studies the effects of similarity on individual judgement and choice. Three sets of experiments are proposed. The first set of experiments investigates multiattribute stimuli with similar levels along one dimension and dissimilar levels on another. The hypothesis that similarity along one dimension will enhance differences along another dimension is tested. The second set of experiments investigates the effect of the stimulus range on attribute importance. The hypothesis that similarity along a stimulus dimension will decrease the importance of that dimension is tested. The third set of studies examines similarity between stimulus and response scales and tests the conjecture that when a stimulus dimension is more closely related to the response scale, that stimulus will receive greater weight to the extent that it is perceived to be more valid. When the validity of the stimulus is unconfounded with response scale similarity, the more valid cue is weighted more heavily. By contributing to a better understanding of how individuals evaluate multiattribute items, this project may lead to more realistic models of individual valuation for use in decision making, marketing and voting. ***//